Enantioselective Binding on Chiral Polymers

Kenny B. Lipkowitz at Indiana University-Purdue University in Indianapolis is supported by the NSF Theoretical and Computational Chemistry Program to perform theoretical studies related to the binding of optical isomers to polymers with a particular chiral orientation.The different binding of the isomers to the polymers is described as enantioselective binding of analytes to chiral stationary phases, CSP's, of the polymers. The systems which will be studied are relevant to chromatography. In addition to the theoretical work, the project will also carry out complementary experimental studies. In particular, atomic force microscopy, AFM, measurements will be made on the chiral surfaces of polymer crystals; the AFM tips will be fabricated using materials close to those involved in actual chromatographic processes. A principle objective of the work in this project is to obtain understandings of the elementary chemical interactions of the analytes with the chiral polymers. The theoretical treatments to be made will be based on Monte Carlo, MC, and Molecular Dynamics, MD, methods. Several force fields will be used to insure that the MC and MD simulations are reliable and are not artifacts. The results of the calculations will be compared with experimental separability factors found with chromatographic measurements. Chromatography is a standard chemical technique for the analysis of the composition of mixtures; it is also used to separate mixtures into their individual components. The use of chiral polymers for enantioselective separations of such mixtures is an important current topic in organic chemistry. This project addresses the theoretical underpinnings of the mechanisms responsible for enantioselective binding. The project has the potential of providing the foundations needed in order to develop more efficient chromatographic analyses.